RUI: Positron Annihilation Spectroscopy Investigation of Magnetically Induced Recovery in Plastically Deformed Metals

9301209 Schaffer This project investigates the potential for processing metals using pulsed magnetic fields. The research employs positron annihilation spectroscopy (PAS) to determine the effects of the pulsed magnetic fields on material structure. The (PAS) results are supported by X-ray diffraction, hardness, and resistivity measurements. The material structure-related measurements are correlated with mechanical property measurements (tensile, hardness and wear). Modeling of the magnetically-induced defect recovery is pursued by consideration of the behavior of the overlapping stress fields created by the pulsed magnetic field and the defect structure. %%% This research will clarify material structural changes induced by magnetic-induced defect recovery. This could lead to new processing treatments for metallic materials. ***